Approximation and Learning in High Dimensions

Petrova
0708470

The investigator and her colleagues organize a workshop on
learning theory to stimulate interactions between the disciplines
of probability, approximation theory, and numerical algorithms as
they affect the development of learning theory and learning
algorithms. The workshop emphasizes the following topics:
concentration of measure inequalities and their application to
probability bounds in learning, kernel methods of approximation
and their role in support vector machines and other learning
algorithms, and fast algorithms for the sparse approximation of
high-dimensional data.

Understanding intelligence and how it manifests itself in
learning and in assimilating information is one of the great
scientific challenges. It is a key to designing systems that
efficiently analyze data and extract essential information. The
scientific discipline that studies this aspect of intelligence is
called learning theory. Central tasks in analyzing data are
regression, which describes the relationship between variables
whose sampled values are part of the data (for example, the
locations and speeds of an object and the times when these are
observed), and data classification, which categorizes each
element of the data set in terms of the values of components of
the datum. This workshop emphasizes particular aspects of
learning theory: probabilistic bounds to help select good
representations of scattered data, particular approximation
methods and their relation to a general family of classification
techniques called support vector machines, and fast computation
methods for the sparse approximation of high-dimensional data.
The workshop advances the nation's capabilities in scientific
learning theory by bringing together researchers from diverse
disciplines to consider these topics. Learning theory sits at a
crossroad between aritificial intelligence, statistical
inference, and mathematical data analysis. It has a myriad of
existing and potential applications in both the defense and
civilian sectors. Typical of these are the navigation of
unmanned vehicles, the fast classification of data for such
applications as homeland security, and modeling the human visual
system.